Effects of Urban Heat Islands and a Refined Surface Database for China

ATM-9410685 Portman, David Atmospheric and Environmental Research Inc. Title: Effects of Urban Heat Islands and A Refined Surface Database for China Utilizing the archived primary datasets the PI will construct distinct time series of urban and rural surface temperatures for each climatic region in China, and will adjust the urban temperatures to remove the heat island biases. These regional time series will constitute a refined climatological database, which the PI will document and make available to the general climate research community through a national data center. The PI will also compare the variations in time series of urban and rural temperatures averaged for all of China with those in some other time series of large-scale regional, hemispheric, and global average temperatures. Quality assurance of the surface data from China is not readily ascertained by use of conventional methods, such as those that reply on abundant station history information. Results of this research will therefore provide an important basis for further assessment of potential inhomogeneities and urban heat island effects in surface data from China and other parts of the developing world. This research is important because it evolves methods of producing clean and quality research datasets for global change studies. This grant is funded under USGCRP GEOSYSTEM DATABASE program.